Research Initiation Award: An Integrated Framework for Fault-Tolerant Applications in Real-Time and Non-Real-Time Systems

This research studies a new model of computation, which extends the object-oriented model with timing constraints and resource requirements specifications. A set of scenarios (a set of applications executing at a time) and a scenario change mechanism that allows for different sets of applications to be executed according to the situation are defined. These scenario changes are triggered by an error handler, by an operator or by a user. Scenario changes also allow uniformity in multiple types of fault-tolerant behavior such as graceful degradation, load-shedding, etc.. The latency of these scenario changes and quantify their applicability to real-time and non-real-time systems are studied. Methods are developed for the detection of situations in which these scenario changes can be applied, and develop a theory for the adaptation of these scenario changes to non-time-constrained applications and systems. More accurate models are developed based on real-life workloads and situations, to model realistic fault models, encompassing transient as well as permanent faults. These are of temporal or physical nature (e.g., transient overloads, site crashes or link failures). The implementation of a prototype of a fault-tolerant real-time system that supports this model of computation follows.